Engineering Research Equipment Grant: Reactive-Ion-Etcher/ PECVD/RF-Sputtering Equipment for Fabrication of Micro Electro-Mechanical Systems"

This is a Research Equipment Grant for reactive-ion-etcher/PECVD/RF- sputtering equipment to be used in research on microelectromechanical devices. This research project focuses on the design, analysis, and fabrication of devices with single or numerous micron-scale internal components forming either moveable mechanical elements, which are actuated by strong fields, or sensor elements, which infer relative positions of components based on local fields. Devices to be produced using this equipment include sensors -- such as strain gauges, micropositioners, and multi-axis tactile sensors -- spatial light modulators, and actuators. Crucial to the design of these devices is the ability to build deep or complete cut-outs into the structure, and to pattern metals, insulator and magnetic materials. This equipment will allow the on-site generation of microelectromechanical devices requiring vertical etching principally in silicon-based materials, and the generation of such devices requiring deposition of conductors, insulators, and magnetic films.